Deformation of Cervical Spine Soft Tissue

This is an applied engineering research project which will determine how the deformation of soft tissues in the neck may cause severe pain. This study is based on the hypothesis that neck pain, not involving nerve root compression due to bone deformation, is caused by the mechanical deformation of spinal soft tissues. Quasi-static mechanical testing of appropriate tissue will be performed under a variety of loading conditions: flexion, extension, twisting etc. From these data, the strains in the tissues will be calculated in an attempt to identify the cause of neck pain and injury not related to disc-related nerve root compression.